XPS: CLCCA: Improving Parallel Program Reliability Through Novel Approaches to Precise Dynamic Data Race Detection

The ubiquity of multi-core processors in everything from servers to
smartphones has demanded a similar prevalence of multi-threaded
programs to take advantage of multiple cores. Unfortunately, writing
multi-threaded code is still in the Wild West era of error-prone manual
synchronization, unchecked concurrency bugs, and undefined semantics.
One common symptom of an error in a multi-threaded program is a data
race. Data races arise when a program performs concurrent updates to
some location without synchronization. Automatically detecting data
races during program execution enforces strong safety properties for
multi-threaded programs. While techniques for data race detection exist
they slow program execution too much to be viable for always-on
enforcement.

To make always-on detection of data races practical, the project aims
to develop new algorithms, language extensions, runtime systems, and
hardware support to improve the efficiency of data race detection. The
research includes validation of these techniques via formal proofs,
experiments with multi-threaded benchmark suites, and detailed hardware
simulation. The researchers plan to openly distribute the systems
built for this project to facilitate examination by other researchers
and integrate the research results into the computer architecture
courses they teach. If successful, the proposed technology will
improve the safety and quality of the vast amounts of multi-threaded
code running on today's and tomorrow’s multi-core devices.